Project NEXUS: The Maryland Upper Elementary/Middle School Science Teacher Professional Continuum Model

This research study involves collaboration between researchers at the University of Maryland, College Park and Bowie State University, an HBCU, to examine a multi-component pre-service model for preparing minority students to teach upper elementary and middle level science. The treatment consists of (1) focused recruitment efforts by the collaborating universities; (2) a pre-service science content course emphasizing inquiry and the mathematics of data management; (3) an internship in an after school program serving minority students; (4) field placements in Prince Georges County minority-serving professional development schools; and (5) mentoring support during the induction year. The research agenda will examine each aspect of the intervention using quantitative and qualitative methods and a small number of case studies.